Undergraduate Research in Robotics and Intelligent Systems

This project will establish at the Colorado School of Mines a research experiences for undergraduates site in the area of robotics and intelligent systems. Students will be recruited from minority groups and from smaller colleges in the Rocky Mountain states. The Department of Engineering at CSM, which has submitted this proposal, offers a strong interdisciplinary systems oriented program which focuses on the use of robotics and automation for space and mining applications. The student management plans anticipate both summer and academic year involvement for participation students during the 1990 and 1991 academic years.